Active Dynamic Continuum Tails for Maneuvering and Stabilizing Legged Robots

The research objective of this award is to study how biomimetic continuum tails can dynamically stabilize and maneuver legged mobile robots moving at high speeds. Field robots are limited in how they may respond to unforeseen dynamic disturbances in unstructured hazardous environments and how they may change their direction without modifying gait and slowing down. With a continuum tail, the required forces and moments to stabilize and maneuver the robot can be applied by dynamic tail motions instead of using the legs, torso or arms. This research will study algorithms to map the required forces and moments into continuum tail control inputs to stabilize and maneuver a legged robot, and derive dynamic models to predict the tail's dynamic forces and moments to enable task planning. Deliverables include dynamic modeling, task planning algorithms and design paradigms of intelligent robotic tails, an experimental validation with a test platform of the tail mechanism and simulations of legged locomotion, dissemination of research results, engineering student education, engineering research experiences for students and science teachers, and new engineering curriculum development.

Results of this research will provide an opportunity to create robotic tails that are capable of augmenting a legged robot's ability for agile and robust terrain traversal in unstructured hazardous environments. The research will impact applications from search and rescue to reconnaissance to exploring hazardous and dangerous environments, in which robots must move effectively in unstructured terrains. Legged robots can better traverse these unstructured environments compared to wheeled or tracked systems due to the legs' use of discrete ground contact points. This project's primary impact stems from the tail's improvements to a legged robot's stability and maneuverability. This will lead to faster search and rescue or exploration of dangerous environments, allowing these legged robots to augment and exceed human capabilities. In terms of educational impact, this research will: (1) provide support for engineering graduate and undergraduate students, (2) be developed into case studies for university-level courses, and (3) be used in demonstrations for K-12 students. Minorities and underrepresented groups will be targeted for outreach and participation.